Board on Chemical Sciences and Technology

This award, made to the National Academy of Sciences, provides continuing support for the core activities of the Board of Chemical Sciences and Technology. The Board plans and develops new projects germane to the broad chemistry community, provides oversight of ongoing studies, and provides liaison between federal agencies, universities, and the private sector on matters of broad interest to chemistry and chemical engineering. Support of core activities of the Board of Chemical Sciences and Technology ensures that the chemical sciences community has a credible and independent entity representing its interests across government, academia, and the private sector.